Surveying and Coring in the Easternmost Panama Basin for Late Quaternary Ocean and Climate Studies

This proposal is funded to survey and core high accumulation Holocene sediments along the margin of Columbia and Peru in the northeastern tropical Pacific. This should allow for a high-resolution reconstruction of sea surface temperatures and salinity by using the oxygen isotopic composition and Mg/Ca ratios of planktonic foraminifera, and continental climate proxies such as clay mineralogy. By doing the proposed work a number of unresolved questions about ENSO-type variability may be answered.